Equipping POOL---The Physical Oceanography Observing Laboratory

0115671
Hogg
This Major Research Instrumentation award to Woods Hole Oceanographic Institution (WHOI) in Massachusetts will provide support for acquisition of mooring-related instrumentation to be managed by the Physical Oceanography Observing Laboratory (POOL) and made available on a shared-use basis to US academic researchers funded for research that requires oceanographic moorings. Specific instrumentation provided with this award includes two moored profilers with acoustic current meters and CTDs, as well as forty other acoustic current meters, plus temperature and salinity sensors, acoustic releases and deck units for general mooring support. WHOI will contribute 30% of the cost of this project from non-federal funds.
***